The Amphibian and Reptile Diversity of Myanmar

Myanmar (Burma) has a very diverse herpetofauna, but one that remains very poorly known owing to various factors, including the government's traditional policy of official isolationism and the lack of native organismal biologists. We estimate that potentially between 100 - 300 amphibian and reptile species remain to be discovered within Myanmar's borders, many of which will be new to science. This project will employ intensive field surveys over three years to generate extensive herptetological collections and to arrive at a comprehensive understanding of Myanmar's amphibian and reptile diversity, distributions, and ecology. The PIs will work closely on this project with Myanmar's Nature and Wildlife Conservation division and the data gathered will assist the Myanmar government's own efforts aimed at conserving their imperiled biodiversity. The collections that will be made during this project will be split between the US and Myanmar, where the specimens will form the core of a newly created national biodiversity collection. All types of data generated during this study will be disseminated via a web site being developed at the California Academy of Sciences.